NSF Young Investigator

The applicant's research program, in general, involves understanding the relationship between polymer structure and properties. Particular projects involve modifying polymers for high permeability and mechanical strength, and investigating the effects of physical and chemical mixing on permeation, mechanical strength and suprastructure.